Incarceration and the Welfare State: Patterns of Social Control in Capitalist Democracies

; R o o t E n t r y F 6m D C o m p O b j b W o r d D o c u m e n t 4 O b j e c t P o o l < D < D 4 @ * + , - . / 0 1 2 3 F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; 8 (e (A K ? p '~? 9510936 Sutton This project examines the interactions among the system of prisons and mental health hospitals, institutions of social control, and welfare politics in a sizable sample of capitalist democracies. It will describe and test theories about these interactions using dynamic, diachronic models placed into a historical and political context. Two basic questions underlie the analysis. First, are the inmate capacities of prisons and mental hospitals related to each other? Second, how are these patterns of incarceration related to patterns of social welfare? Esping-Anderson s typology of social welfare regimes is used to develop hypotheses about the links between welfare and social control. Quantitative analyses will be placed in historical context using data drawn from secondary studies and government reports. %%%% This project examines the interactions among the system of prisons and mental health hospitals, institutions of social control, and welfare politics in a sizable sample of capitalist democracies. It will describe and test theories about these interactions using dynamic, diachronic models placed into a historical and political context. Two basic questions underlie the analysis. First, are the inmate capacities of prisons and mental hospitals related to each other? Second, how are these patterns of incarceration related to patterns of social welfare? Esping-Anderson s typology of social welfare regimes is used to develop hypotheses about the links between welfare and social control. Quantitative analyses will be placed in historical context using data drawn from secondary studies and government reports. **** ; Oh +' 0 ( L p $ H l N:\WW60\NORMAL.DOT 95-10936 C. Neal Tate C. Neal Tate @ D @ @ D S u m m a r y I n f o r m a t i o n ( ) @ Microsoft Word 6.0 2 e = e 4 l l l l l l l h C * J T 5 h l h l l l l l l l l e 9510936 Sutton This project examines the interactions among the system of prisons and mental health hospitals, institutions of social control, and welfare politics in a sizable sample of capitalist democracies. It will describe and test theories about these interactions using dynamic, diachronic models placed into a historical and political context. Two basic questions underlie the analysis. First, are the inmate capacities of prisons and mental hospitals related to each other? Second, how are these patterns of incarceration related to patterns of social welfare? Esping-Anderson s typology of social welfare regimes is used to develop hypotheses about the links between welfare and social control. Quantitative analyses will be placed in historical context using data drawn from secondary studies and government reports. %%%% This project examines the interactions among the system of prisons and mental health hospitals, institutions of social control, and welfare politics in a sizable sample of capitalist democracies. It will describe and test theories about the